RI: Learning Structure to Structure Mappings

Proposal 0713483
"RI: Learning Structure to Structure Mappings"
PI: Thorsten Joachims
Cornell University

ABSTRACT

This goal of this proposal is to extend ongoing work on learning with
structured output spaces in the support-vector-machine (SVM)
framework. Such structured output spaces arise in problems where the
prediction is not a univariate response (e.g., yes/no), but a
structured object (e.g., a sequence, tree, or alignment). While
recent work has uncovered how to discriminatively learn prediction
rules for simple structures with limited interdependencies, research
is needed to extend these methods to the complex structures needed
for many applications (e.g., machine translation). This project aims
to extend the structural SVM framework to such complex structures.
Specifically, it focuses on the required gains in computational
efficiency, broader classes of loss functions, and the use of
unlabeled data to improve statistical efficiency. As done in the
past, the project plans to make available software implementations of
the methods developed in the project. These will be made sufficiently
robust and efficient so as to be suitable for real-world applications
outside the machine learning research community as well as for
classroom teaching. The project will apply its results to two
high-impact areas like protein structure prediction or machine
translation.